Acquisition of a Laboratory for Computationally Assisted Investigation of Geomaterials

9512434 Gosink Geomechanical problems are characterized by large amounts of data, significant variability, and lack of experimental control. Analysis is frequently dependent upon remote sensing of various types, including geotomography, and acoustic and microwave methods. Computationally intensive models, discrete element methods, and inversion techniques, are employed to determine soil and rock properties, and their response to civil works, contaminant dispersion and seismic loading. At CSM, investigators have been actively involved in both experimental and computational studies of geomaterials; these studies now require enhanced computational capability and instrumentation for continued success. The research strategy advances a systems approach to the analysis of geomaterials. Rather than focusing on computation without data acquisition or the reverse, we are proposing a suite of computers and instruments which, working together, can substantially increase our understanding of fundamental properties and processes in soils and soil/rock mixtures, as well as in other material applications. This information has relevance to problems of the civil infrastructure, contaminant transport and fate in soils, construction issues, design for seismic considerations, transportation technologies, energy technologies and pollution minimization and waste management. ***